Postdoctoral Research Fellowship in Microbial Biology for FY 2004

This action funds an NSF Postdoctoral Fellowship in Microbial biology for FY2004. The fellowship supports training and research on the basic biology of protozoan, microalgal, fungal, archaeal, bacterial and viral species that are not generally considered to be model organisms. Further, it provides opportunities for recent doctoral recipients to obtain additional training in microbial biology, to gain research experience under the sponsorship of established scientists, and to broaden their scientific horizons beyond the research experiences during the undergraduate and graduate training. These fellowships are further designed to assist new scientists to direct their research efforts across traditional disciplinary lines and to avail themselves of unique research resources, sites, and facilities, including foreign locations.

The research and training plan is entitled "Elucidation of phosphonic acid biosynthetic pathways in Streptomycetes." The proposed research is a combination of genetic and biochemical approaches to identify and characterize the biosynthetic pathways of phosphonic acid natural products produced by Streptomyces species. The techniques developed during this work are being applied to the identification of novel biologically produced phosphonic acids. The training goals are to learn techniques for both the cultivation and the genetic manipulation of Streptomyces species and related Actinomycetes.